Collaborative Research: Numerical Methods for Nonlinear Diffusion Problems

This proposal is concerned with the approximate solution of systems
of nonlinear elliptic and parabolic partial differential equations posed
on complicated domains. Such problems are used to model a wide variety
of physical phenomena in various fields of engineering, mathematics, and
science. Particular applications considered in this project arise in
chemical electrostatics, in the topological classification of general
surfaces in geometric analysis, and in semiconductor physics. Common
characteristics of such nonlinear problems presenting hurdles to
computational science include: multi-domain and time-dependent domains,
multi-scale and multi-physics, and potential loss of regularity and blowup.
In this project, the investigator plans to develop some fundamental mathematical
tools for dealing with these difficulties that will have a wide range of
applicability.

The results of this project will have a broad impact in mathematics
as well as in science and engineering. In this project, the investigator is
focused on applications in geometric analysis that are used to address fundamental
questions in geometry, and on applications to highly complex mathematical
models arising in modern biology, chemistry, and physics. However, the
computational difficulties associated with complicated, multidimensional
domains and multi-scaled, multi-physics differential equations that require
new computational approaches arise in many contexts. The methods developed
here will contribute to the advancement of numerical methods for complex
three dimensional nonlinear dynamical simulations. The simulation
technology we produce will provide exciting and powerful tools for the
exploration of models in physics, chemistry, and biology, as well as in
some areas of pure mathematics such as geometric analysis.